Human Genome Diversity

This is a proposal to conduct two workshops and an international conference on the development of a Human Genetic Diversity project. Human genetic diversity holds the key to understanding the evolution of our species. By documenting genetic variation we will be able to decipher the forces that guided our evolution and the paths down which it proceeded. The data will be significant for both biological scientists and medical researchers. With the advent of new techniques for manipulating nucleic acids there has never been a better time for gathering this data but the disappearance of many aboriginal populations places a time constraint on the gathering of the information. These sessions will bring together mathematical population geneticists, statisticians, population biologists and physical anthropologists to develop appropriate strategies for undertaking the data gathering phase, storage techniques, standardization of protocols as well as considering which population samples would be most informative.